Support for Symposium Entitled "Biochemical & Metabolic Aspects of 3-Ketoacyl Synthases", at Palmas Del Mar Resort, Puerto Rico, on June 1 - 5, 1996

9601037 Jaworski A meeting will be held to discuss the biochemical and metabolic aspects of 3-ketocyl synthases. These moieties are significant in several essential metabolic pathways in plants, animals, and bacteria. This is a unique opportunity for these researchers to get together and share their ideas. Participation of students and postdoctoral fellows will be emphasized. ***